Travel to the UNESCO International Conference on the Quality of Engineering Education

9419387 GHAUSI This is in international travel grant to Dr. M.S. Ghausi, Dean, College of engineering, University of California, Davis. Dr. Ghausi will travel to Tel Aviv, Israel to visit Hebrew University and Tel Aviv University and meet with colleagues there with similar research interests and will attend the UNESCO International Conference on the Quality of Engineering Education in Cairo, Egypt to present a paper entitled, "Problems and Progress: Women in engineering". The dates of this travel are November 9-18, 1994. ***